(ITR) CMS Analysis: an Interactive Grid-Enabled Environment (CAIGEE)

This proposal is to support work on developing an interactive Grid-enabled analysis environment for physicists working on the high energy physics CMS experiment at the Large Hadron Collider (LHC) at CERN, Switzerland. The environment will be lightweight yet highly functional and will make use of existing CMS tools as plug-in components. It will consist of tools and utilities that expose Grid system functions, parameters and behavior at selectable levels of detail and complexity. Use will be made of Web services and it is expected that many of the components will be sufficiently generic to be useful for other experiments and scientific endeavors utilizing Grid computing technology.
The effort is closely related to work ongoing in the GriPhyN, iVDGL, PPDG and SciDAC projects.